Mathematical Sciences: Thermal Effects in Fully-Coupled Transient Models for Dynamics Quasi-Brittle Fracture

Experiments show that quasi-brittle fracture in solids under rapid (dynamic) loading is accompanied by temperature increases. These increases are confined to very small regions near the crack edge, yet are substantial enough to reduce the solid's resistance to fracture. The study of this phenomenon must deal with the mixed boundary/initial value problems and fracture criteria of fracture mechanics and transient thermoelastic and small-scale yielding theories that often couple otherwise hyperbolic and parabolic partial differential equations. The research proposed here will conduct just such a study by obtaining analytical solutions, asymptotic expressions and numerical results for these problems. Two important variations -- the principle of second sound, which allows thermal waves, and crystal defect (dislocation) motion near cracks -- are also considered. The results obtained will shed new light on the critical problem of rapid fracture in solids by considering the oft- neglected temperature effect. The development of the equations and numerical results necessary for this purpose will provide insights into combinations of equations that are usually examined separately. Finally, the difficulties encountered in the development process will lead to an enhanced capability to apply a variety of analytical and computational solution techniques.